CAREER: Algorithmic Techniques for Massive Data Sets

A number of new applications have recently emerged that require the storage,
maintenance, and analysis of massive amounts of data. Examples such as web
search engines, data warehouses, and large scientific data repositories
often involve multiple terabytes of data that are simultaneously searched and
explored by many users. This research project investigates fundamental
algorithmic problems arising in the context of such large data sets, studies
the complexity of these problems, develops new techniques for their efficient
solution, and experimentally validates proposed techniques in the appropriate
system and application context. The main focus is on problems arising in
databases and in searching and analyzing the World-Wide Web.

More precisely, the research focuses on problems concerning the storage,
maintenance, partitioning, indexing, and approximate representation of very
large data sets, and the efficient exploration, analysis and precise and
approximate querying of such data. The types of problems that are studied can
be grouped into two categories, one consisting of problems motivated mainly
by applications in the database area, and one motivated by applications in
web search and analysis. In the first category, the project studies
multi-dimensional data partitioning problems arising in selectivity estimation
and indexing, feedback-based approaches to selectivity estimation, association
rule mining problems, and the approximate and precise evaluation of complex
queries on large data sets. The problems studied in the second category are
concerned with online search on the web, the study of random graph models for
the web, and efficient computing with large web graphs and hypertext
collections.